Increasing Diversity through Undergraduate Student Participation in the Animal Behavior Society Meetings. Meeting will be held July 21-25, 2007 and to be determined in 2008.

0735035

Emilia P. Martins, Peggy S.M. Hill, Duane Jackson, Penelope F. Kukuk, Zuleyma Tang-Martinez, Susan M. Bertram

Increasing diversity through undergraduate student participation in the Animal Behavior Society meetings

This project continues a targeted activity that brings 10 undergraduate students each year to the annual meeting of the Animal Behavior Society. The program includes a one-day workshop with mentoring activities that introduces the students to graduate school and career opportunities in the sciences. In recent years, 60% of program students have been members of underrepresented minority groups, and 90% have agreed that they were more likely to go into graduate research in science as a result of having attended the ABS meetings. Responsibilities for managing this award and directing on-site activities are shared by the members of the Animal Behavior Society Diversity Committee.